7th Topical Workshop on Proton-Antiproton Collider Physics; Batavia, Illinois; June 20-24, 1988

The 7th Topical Workshop on Proton-Antiproton Collider Physics was held at Fermi National Accelerator Laboratory from June 20 through 24, 1988. The previous workshops in this series were held in Europe. The workshops have been the primary vehicle for gathering together the physicists working on proton-antiproton collision at high energy. In the past, the workshops have been dominated by experiments from Europe. This year the Tevatron at Fermilab will have completed its first major run. NSF funds would be used to defray costs for publications, particularly for young physicists who were not obliged to pay a registration fee.